The Magic School Bus Museum Project: Seasons III/IV

9627162 Reynolds Discovery will develop and disseminate museum activity manuals and hands-on science activity materials to Magic School Bus museum sites nationwide. These materials will enable participating museums to: o provide enrichment activities, demonstrations, tabletop exhibits, and other science programming to support seasons III and IV of The Magic School Bus series; and o maintain and nurture collaborations at each site between schools and teachers, public television stations, youth-serving organizations, libraries, and the museum. The key staff will include Jerald H. Reynolds of Discovery Place who will be PI and will have responsibility for coordination of The Magic School Bus collaborative. Marcia Rudy, Director of Public Programs at the New York Hall of Science will lead the development team for the museum activity manuals. Rhonda Kiest, Director of Educational Exhibits at the Children's Museum of Houston, will have primary responsibility for design of the new tabletop exhibits and for upkeep of the two Scholastic's The MAGIC SCHOOL BUS Inside the Earth exhibits that are now traveling to museums. Cheryl Gotthelf, the Executive Project Director for The Magic School Bus television series will assure coordination between the museum project and series development.